Mathematical Sciences: Fifteenth International Biometrics Conference; July 2-6, 1990, Budapest, Hungary

This proposal will help support travel expenses for approximately thirty U.S. scientists who will organize and present invited papers at the 15th International Biometrics Conference. The conference will be held in Budapest, Hungary from 2 July to 6 July, 1990. The strength of the meeting lies in the broad international participation of statisticians, biologists and mathematicians interested in quantitative and statistical aspects of biology, genetics, environmental pollution, and other fields. This conference is the major international meeting of biostatisticians and biometricians, and should attract 500 or more scientists from the international community.